Workshop on Phosphorus Cycling in Terrestrial and Aquatic Ecosystems: A Global Perspective; Budapest, Hungary

This proposal requests request support for U.S. scientists to participate in a SCOPE sponsored workshop on Phosphorus Cycling in Terrestrial and Aquatic Systems. The goal of the workshop is to collect and integrate data, concepts and models on phosphorus cycles in a global context. In addition, a symposium will be held during the workshop with the aim to present integrative ecosystem analyses on phosphorus inputs, transformations, transfers and losses in Hungary. The Hungarian analysis will focus on three systems: (1) The Balaton Lake basin, an inland closed watershed, (2) The Danube, as an example of a major river system with pollutant phosphate inputs from intensive agriculture, major cities, and industries, that accumulate in its course through several countries with widely differing environmental protection standards, and (3) Hungarian agriculture, which has been plagued by inefficiencies of nutrient use and resultant off-site contaminations. The global analysis is based on the results of 4 previous workshops, held in Europe, South America, Southeast Asia and Africa, and aims at the integration of knowledge across boundaries of ecosystems and regions while exploring the links between phosphorus and other element cycles. %%% Both the global and Hungarian perspectives will be provided by recognized experts from several disciplines through presentations and working groups with the following mandates: (1) To synthesize chapters on the major cycles and transfers of phosphorus based on prepared manuscripts and extensive discussion and review sessions for the production of a book to be published by John Wiley in the SCOPE series; (2) to develop concepts and models applicable across ecosystems and test them against the Hungarian case studies; and (3) to facilitate discussions and cooperation between Hungarian, U.S., and other invited experts with the aim to foster future cooperation and provide guidelines for environmental planning.